CRI Planning: Computing Infrastructure for the UConn Health-Grid Initiatives

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI Planning: Computing Infrastructure for the UConn Health-Grid Initiatives
Proposal: CNS 0551549
PI: Huang, Chun-Hsi
Institution: University of Connecticut

The investigator will conduct planning activities for the UConn Health-Grid Initiative aimed at advancing the application of modern information technology to various disciplines of life science research and practice; the project will promote and reinforce awareness of the advantages linked to the development and deployment of modern Grid technologies towards an infrastructure for automated information integration and analysis. The computing infrastructure will be based on a campus-wide computational and data Grid, an ongoing effort begun in 2004. They will continue development of general-purpose middleware support for secure transfer of sensitive data over computing infrastructure. The educational programs associated with the Health-Grid Initiatives include the development of new and re-development of current courses to incorporate inventions coming out of the research, a new cross-disciplinary e-Health minor, as well as new degree tasks emphasizing the application of information technology to different disciplines of life science. In addition, an annual scientific meeting, the international BioGrid Workshop, will be held in conjunction with the research and education enterprise.